Taxonomic Revision of Dasymutilla (Hymenoptera: Mutillidae)

The genus Dasymutilla (Hymenoptera: Mutillidae) is a relatively large group of parasitic wasps distributed predominantly in North America. There has not been an extensive study of the genus since 1928, and even that study dealt only with species inhabiting America North of Mexico. Less than half of the species belonging to this genus are known from both sexes. The overall objectives of this study are to complete a taxonomic revision of the genus Dasymutilla, including correlation of the sexes of more species, updating of biological and distributional data, providing current keys to the species for both males and females, and phylogenetic analysis. The specific goals to be accomplished through the funding of this project are: 1) visit appropriate museums and university collections in order to examine the holotype specimens of the genus Dasymutilla; 2) study the general collections of Dasymutilla in museums and universities, noting geographic distribution, dates of collection, and looking for specimens taken in copula; and 3) visit as many known collection sites as possible, collecting specimens and biological data, especially for species for which key taxonomic data are lacking.